NSF Young Investigator

9457485 Khammash The research plan involves the creation and development of new analytical and computational tools for the analysis and synthesis of control systems in the presence of modeling uncertainty. Another goal is to develop new robustness tools suitable for handling more refined models of uncertainty and disparate performance objectives. The research will address the robustness issues specific to particular application areas such as power systems and compressor control systems. The design of power systems stabilizers, high voltage direct current modulation, and static VAR compensators will be investigated. ***